Algorithms in Convex Geometry and their Applications in Combinatorial Optimization

This project investigates the problems of volume computation, sampling from geometric domains, integer programming, and some basic, but not yet well understood, problems such as containment between convex bodies. The goals are to develop new algorithms, to test implementations and, parallel to this, to explore theoretical bounds on the efficiency of algorithms. The main tool in the design of these algorithms is randomization, in particular random walks and Markov chains.